Experimental Mathematics and Number Theory

Fateman
The investigators take up three tasks in experimental
mathematics, which uses computers as a tool to discover and prove
new mathematical results. They: (1) develop and enhance software
tools to support experimental mathematics; (2) pursue additional
results in recognizing constants in number theory; and (3) pursue
additional proofs of normality for irrational constants.
The investigator and his colleagues use computers as a tool
to discover and prove new mathematical results. They have
expertise both in mathematics and computer science. Recent
examples of this methodology in action by members of the team
include the discovery of new formulas for pi and other well-known
constants, numerous results on multiple zeta constants and
infinite series involving binomial coefficients, identification
of constants that arise in physics and chemistry, a result on the
randomness of the binary digits of pi and log(2), and a proof of
normality for an uncountably infinite class of real numbers. In
addition to its inherent scientific interest and potential impact
on mathematical research, this type of research presents a unique
opportunity to forge links to researchers in other disciplines,
especially computer science and physics, and to convey the
excitement of modern mathematics to the general public.